Conference Progress in Motor Control-II: August 1999: University Park, PA

IBN-9813994 LAY ABSTRACT An International Conference "Progress in Motor Control-II: Structure-Function Relations in the Perceptual Control of Voluntary Movements" is planned for the last three days in August 1999. The Conference will take place in the Nittany Lion Inn, on the campus of the Pennsylvania State University, University Park, PA. This conference will represent the second step along the much-needed route towards integration of information in the area of sensorimotor control. The participation of the spectrum of the invited speakers will make it unique and attractive for potential participants. The Conference will cover the following topics: Neurophysiological Aspects of Sensorimotor Control of Movements; Perceptual Control of Movement; Biomechanics; Motor Disorders; Motor Development; Psychophysiology of Movements; Models and Theories in Sensorimotor Control. All topics will emphasize an integrative approach to the study of adaptive behavior. The focus of this particular meeting will be on the interactions between neurophysiological and biomechanical structures and their sensorimotor functions. The Conference will include 14 invited presentations, free podium presentations, and poster sessions. Invited speakers were selected based on their integrative approach to movement studies, their outstanding contribution to different areas of sensorimotor control, particularly to understanding the role of various neurophysiological structures and of biomechanical factors in the coordination of voluntary movements, and their international reputation. Conference abstracts will be distributed among the participants. Invited speakers will write chapters that will be published as a book by Human Kinetics Publishers.